Presidential Young Investigator/Path Integral Methods for Molecular Electronic Structure Calculations

Dr. David Coker is supported by a Presidential Young Investigator Grant from the Theoretical and Computational Chemistry Program to develop computationally tractable descriptions of many body potential surfaces which can accurately describe bond breakage and formation. These theoretical potential energy surfaces are important in furthering our understanding of chemical reactions at the molecular level of detail. Coker plans to exploit the isomorphism between the path integral formulation for the many electon exchange problem, and the grand partition function describing the classical association equilibrium between cyclic polymer molecules as a method for dealing with correlated motions of molecular valence electrons. Coker proposes the use of several novel weighting techniques to circumvent the known phase problems associated with this methodology in treating antisymmetric many electron wavefunctions. The long term goal of this research is the calculation of many body potential energy surfaces which allow the electronic distribution to vary dynamically with the nuclear motion, and therefore provide a high level of accuracy currently missing from most approches to molecular dynamic simulations of chemically reacting systems.